Use of Total Stations and the ERDAS Image Processing System in Surveying Engineering Undergraduate Education at the University of Maine

Two major pieces of equipment are required for the comprehensive undergraduate surveying engineering program. A total station which combines all aspects of the survey field measuring system in one unit and a data collector which enables digital storage of measurements followed by downloading of the data into a microcomputer for processing is one area. The other area involves the ERDAS digital mapping, image processing, geographic information system. ERDAS will be the core unit in the remote sensing area of the curriculum. Processing and display of remotely sensed data using this system will expose the student to the capabilities of modern equipment in the rapidly evolving area of surveying engineering. The understanding of the relationship of all forms of spatial information collection and analysis is a key goal.